Collaborative Research: Fracture Properties of Heat-straightened Steel (UWYO)

Heat straightening has been used to repair damaged steel structures for many
years. However, until recently practitioners use of the method was based on
experience gained through trial and error. Recent research had provided and
engineering basis for the method and established procedures for its use.
The engineering and construction community has been hesitant to utilize heat
straightening for several reasons including: past misuse of the process
which has produced fractures during repair; concerns about the effect of
heat straightening on material properties, especially ductility; and a
general lack of understanding of the method. Its current application is
primarily in repair of damaged bridge girders with limited application for
other types of construction. Even though a scientific basis now exists for
the method, there is a major gap in available data that has limited the
application of heat straightening. There have been no significant
investigations into the fracture sensitivity of heat straightened members.
Without this knowledge, a performance based design approach cannot be used
for designing heat-straightening repairs. The purpose of this proposal is
to describe a research plan that will quantify the process and define the
limiting parameters for a successful repair.